Spectroscopy and Control of Molecular Dissociation Using Strong Laser Fields

The proposal calls for the development of a versatile high- repetition rate short-pulse laser system and the associated ability to carry out correlation and coincidence measurements on electron and ion time-of-flight signals. These tools will be applied to a wide range of problems including: Correlation techniques to unambiguously determine dissociation pathways of highly ionized diatomic molecules in strong laser fields, Curve crossing in transient states of molecular ions, and Fundamental measurements in the above-threshold-ionization of atoms by strong laser fields. ***